MCA: Genomic algorithms and statistical models for gene transfer in naturally transformable bacteria

Bacteria, which often live in complex multi-species communities, are not limited to acquiring
their genes from prior generations. Using a process called natural transformation, bacteria can
also acquire new genetic elements from neighbors and even from free DNA in the environment.
It is currently unknown which genetic sequences are most readily transferred via transformation.
Understanding natural transformation at the genome and community scale requires development
and application of novel algorithms to address this previously unexplored space. This project will
develop computational methods to identify and predict which genetic functions are likely to spread
through bacterial populations by natural transformation. Application of these computational
methods will help fill a void in understanding genetic evolution in bacterial communities which may
be overlooked by taxonomic identification. This in turn can lead to better assessment of risks or
benefits associated with bacterial community members and improved planning of synthetic
bacterial communities. The project workflow will enable new capstone research experiences for
undergraduates from multiple STEM majors on campus.

The connections between molecular and biological parameters that drive genome-wide gene
transfer preferences during bacterial natural transformation have been unexplored due to lack of
genome level experimental and computational analyses. The PI’s laboratory has developed
experimental molecular genetic tools to collect and map natural transformation gene transfer sites
across diverse pairs of donor and recipient bacteria. However, the computational methods to
quantify the driving functional parameters and ultimately to predict gene transfer dynamics
associated with natural transformation do not yet exist. Collaboration with the partner will use the
experimental data to generate genome scale statistical algorithms and computational tools for (i)
global analysis of molecular and biological parameters governing gene transfer events, and (ii)
prediction of gene transfer events that result specifically from natural transformation. This project
will enable expansion of the work beyond current molecular genetic analysis of natural
transformation to the genome and community scale.